Spontaneous Convection in Vaporization Processes

In this project,experiments will be conducted to extend the current understanding of natural convection phenomena in liquids evaporating at sub-atmospheric pressures, and to establish the extent to which these phenomena can be exploited in the design of energy-efficient vaporization processes. Special attention will be focused on conditions which favor convection by differential vapor recoil, which previously has been shown to increase interfacial heat transfer rates by more than 20-fold. This mechanism is poorly understood and the proposed experiments will confirm the role of this phenomenon in vacuum vaporization processes.